Collaborative Research: Theories of Hydrology, Hydraulics and Geometry of River Networks

Prediction from ungauged basins (PUB) is a classic unsolved problem in river basin hydrology which has increasingly important implications for making regional hydrologic predictions due to global climate change. The basic approach towards a solution of this problem requires a deep understanding of empirical and theoretical issues surrounding scaling in hydrologic fluxes, the network geometry and their interretionships, and constitutes the main focus of the research proposed here. The three broad but specific objectives of the proposed research are to develop and test scaling theories of spatial variability, (i) in hydrologic fluxes in river basins, (ii) in link based descriptions of three- dimensional channel network geometry, and (iii) to establish and employ appropriate data bases for a few select basins for testing theoretical hypotheses and predictions. A portion of this total project was funded in part for three years by NASA beginning July 1991. This is shown in Appendix IV. The budget for NSF complements the fund provided by NASA.